CAREER: Bridging Infrared and Visible Photonics with Chip-ready Nonlinear and Quantum Metadevices

Photonics is a powerful technology that enables ever-growing data transfer and inspires novel energy-efficient and reconfigurable architectures that will empower the computers of the future. However, the present diversity of colors in photonic chips calls for a universal approach to transfer signals from one light frequency to another. Currently, chips carry near-infrared signals for communication, visible signals for imaging, and mid-infrared for thermal radiation and sensing applications. Conversion between these chips through electronics-driven detection and emission limits efficiency and operation speed. This research effort addresses the problem of efficient frequency conversion on a chip. It connects signals across five octaves of light through nonlinear and quantum light-matter interactions in designer nanostructures called photonic-phononic metasurfaces. Photonic-phononic metasurfaces will be conceived using modern tools of nanotechnology, as well as rigorous numerical design approaches and state-of-the-art optical testing tools, including femtosecond lasers and single-photon correlation techniques. The results of this research will pave the way to better, more efficient signaling on a chip, which will allow seamless integration of heterogeneous photonic platforms and chiplets. An essential component of this project is an integrated educational effort to train a diverse group of future semiconductor microelectronics and quantum information specialists. Through clean room training, hands-on experience with quantum communication protocols, and public talks, the project’s team will play an important role in shaping the landscape of high-tech research and education of tomorrow.

This CAREER project aims to bridge the gap between mid-, near-infrared, and visible photonics at the nanoscale by exploring nonlinear and quantum light-matter interactions. Over five years, the foundation for connecting light frequencies across five octaves between the visible and mid-infrared in nanoscale devices will be developed. The three main objectives include unraveling the fundamental properties of co-designed photonic-phononic metasurfaces based on a combination of phonon-polaritonic materials (hBN, MoO3) and resonant dielectric nanostructures; facilitating wave-mixing of photons across different frequencies; and employing mid-infrared drive for single-photon emission in strained two-dimensional materials. To achieve these objectives, full-wave analysis, nanomechanical co-design, nanoscale fabrication and characterization tools, near-field microscopy, femtosecond spectroscopy, and correlation measurements will be used. The project holds intellectual merit in exploring the nonlinear and quantum properties of phonon-polaritonic materials, offering a framework for on-chip light management with unprecedented bandwidth, footprint, and efficiency. The broader impacts extend to influencing society through advancements in on-chip photonics, impacting computing, signal processing, telecommunication, quantum information, and biophotonics. The project integrates research and education through semiconductor- and quantum-ready education and workforce development activities. Clean room training for a diverse body of participants, hands-on experience with quantum communication protocols, and public talks will provide training opportunities and inclusion efforts in collaboration with academic and regional organizations.